Next-Generation Atomic Many-Body Formalisms and High-Precision Data for Ultracold Collision Studies

It is planned to develop and apply two new next-generation high precision many-body formalisms. One is a generalized cariational coupled-cluster method, the other the direct evaluation of fourth-order many-body perturbation theory. They will be tested on high precision experimental data for alkali-metal atoms. The approaches will improve the basis for high-precision interpretations of parity-nonconservation measurements, constraining extensions to the standard model of elementary particles. They will permit the high precision description of long-range interactions, crucial to ultra-cold collision studies.